CAREER: Model Systems for Flavoenzyme Activity. Recognition and Catalysis within Sol-Gel Matrices

Professor Rotello's research focuses on three objectives: (1) incorporating flavin derivatives into transparent, silica-based, sol-gel matrices; (2) exploiting the electronic spectroscopy of flavins to probe sol-gel microenvironments; and (3) exploring the thermal redox and photocatalytic chemistry of bound flavins. Spectral properties of the incorporated flavins are correlated with viscoelastic measurements of the gel to identify changes in the flavin microenvironment during gelation and drying. The electrochemical and spectroelectrochemical behavior of the flavin incorporated in the matrix is compared with that in fluid solution to ascertain matrix induced changes in redox potential, while medium effects on redox activity are explored through stoichiometric oxidations of representative thiols and other biologically important functional groups. Educational activities include developing a molecular modeling component for large organic chemistry courses, continuing an outreach program designed to enhance high school students' interest in pursuing undergraduate degrees in the physical sciences, and mentoring undergraduate physical science majors in an integrated program designed to sustain and promote their interest in the physical sciences. With this CAREER award, the Organic Dynamics Program supports the research and educational activities of Professor Vincent Rotello of the Chemistry Department at the University of Massachusetts. Professor Rotello explores the incorporation of reactive molecules into glass-like environments, essentially forming artificial enzymes wherein the matrix plays the role ordinarily taken on by the amino acid backbone of a natural enzyme and the reactive molecule serves as the active site of the enzyme. These artificial enzyme systems offer the opportunity to probe various features of the processes effected by the natural enzymes and may also lead to the discovery of unique reaction chemistry distinct from that of the enzymes. Professor Rotello's educational activities include the development and integration into undergraduate organic chemistry courses of computer-assisted investigations of molecular structure. Through outreach programs, Professor Rotello encourages high school students to major in the physical sciences, and, once they are in college, he enhances and sustains the interest of undergraduate physical science majors through an integrated program of faculty seminars, field trips and interactive laboratory experiences.